An Integrated Land And Water Resources Analysis Curriculum

This project is for computer laboratory equipment to support the development of an integrated land and water resources analysis curriculum. Lancaster County Pennsylvania offers excellent opportunities for studying interactions between land use activities and the resulting impacts on local water quantity and quality, and ultimately the Chesapeake Bay. We propose to integrate and enhance three courses--a GIS course, a hydrology course and a water resource management course-- through the use of computers. This proposal will allow undergraduate students to develop a better understanding of environmental systems. They will also gain meaningful experience with two major uses of computers in environmental analysis, namely GlS and simulation.